Nonlinear Deterministic Models of Postural Control

9308659 Collins The general aim of this research project is to understand the process of maintaining erect posture. The study involves the analysis of the trajectory of the center-of-pressure recorded during quiet stance. The goal is to determine parameters that can be extracted repetitively that characterized the open-loop and closed-loop postural control mechanisms being used by an individual. Also, the effects of visual input and center-of- pressure position feedback on the control mechanisms will be investigated. This study is important since it could lead to the development of a clinically viable methodology for objectively and quantitatively assessing the degree of postural stability changes resulting from injury, disease and/or the aging process through a simple, non-invasive test. ***